Collaborative Research: RAPID: Quantifying mechanisms by which Hurricane Michael facilitates a stable-state reversal on oyster reefs

Ecosystems can exhibit "tipping points" whereby an environmental disturbance pushes an ecosystem into an altered state from which it does not recover, even when the environment normalizes. This may have happened to valuable oyster reefs in Northwest Florida in 2012, when drought and low river flow allowed predators of oysters to flourish and consume nearly all the oysters. Despite subsequent years of normal rainfall and river flow, oysters have not recovered, suggesting the ecosystem may have crossed a tipping point. However, the timing and magnitude of the disturbance from Hurricane Michael (2018) may have pushed the ecosystem back towards its original, healthy state. In this project, investigators make field observations to gauge how predators and oysters are responding to Hurricane Michael and conduct lab experiments to test how predators and oysters respond to hurricane rainfall conditions. Additionally, they use mathematical models to predict whether effects observed in the field and lab could lead to a shift back past the tipping point. This is a rare opportunity to study how oyster ecosystems can shift back from altered to healthy states. However, a rapid response is essential before seasonal changes in the weather and bay obscure hurricane impacts. This research has several broader impacts. First, it will expand the ecological theory of tipping points. Second, it can support the management of the Apalachicola Bay oyster fishery, such as insight into the likely success of restoration efforts. The team coordinates with the Apalachicola National Estuarine Research Reserve to this end. Finally, research outputs are incorporated into ongoing public education and training efforts.

Ecosystems can rapidly shift from their original, high-value state to a new, degraded one. Such shifts have been observed in many ecosystems, but it is sometimes difficult to identify the mechanisms that mediate the shift beyond a "tipping point" and - to a greater extent - those that could mediate a shift back to the original state. Improving our understanding and predictive capability of tipping points depends on identifying the mechanisms that underlie bi-directional system shifts. In 2012, the oyster reefs of Apalachicola Bay, FL abruptly shifted into an oyster-less state when prolonged drought and low river flow allowed marine oyster predators to flourish. Despite subsequent years of normal rainfall and flow, there has not been a return shift, suggesting this ecosystem may have entered an alternate stable state. The hypothesis of this work is that in 2018 Hurricane Michael provided a sufficient disturbance to shift the system back into the attracting basin for its original state (prior observations support this prediction). This project couples field observations and lab experiments with population modeling to test whether and how Hurricane Michael initiated a reversal shift. A rapid response is essential before seasonal variability in this ecosystem obscures hurricane effects. The proposal's intellectual merit is based on its ability to address a central goal in ecology: identifying and predicting ecosystem tipping points. Combining empirical observations and models is a promising approach to advance this goal, but has not been widely applied in the field, mainly because researchers are not in place at the time of a shift. Hurricane Michael provides a unique opportunity to address this knowledge gap.